The Manufacture and Design of Seismic Resistant Filament Wound Composite Structures

9315240 Parsons This project investigates large-scale civil infrastructures using composite materials. The focus of the research is on development of innovative designs utilizing filament winding manufacturing techniques for cost-effective, seismic resistant pipe joints and bridge decks. The research will produce effective conceptual design and determine specifications for new material systems. The project will be conducted on the cooperative basis between US and Korea and included design and testing. The structures produced will be light weight, and corrosion resistant, thus reducing the inertia forces and aiding in the replacement of damaged components. ***